RIA: Synthesis of Passive and Active Bracing in Active Structures

This research will contribute to the development of an instantaneous algorithm for active structures that include viscoelastic dampers and active bracing devices (hybrid structures). Nonlinear behavior of the structural members shall be considered. The research will show whether the hybrid active structure reduces the demand on the magnitude of active control forces. The objectives of the research include the investigation of active control forces at three stages: (a) for an elastic structure with the hybrid system before structural optimization, (b) for a nonlinear structure with the hybrid system before structural optimization, and (c) for a nonlinear structure with the hybrid system after structural optimization.